Biological Computing Laboratory

The Biological Computing Laboratory is used by students during classes, biology laboratories, and undergraduate student research projects to gather data from physiological instruments, to manipulate and analyze data, to retrieve information, to test biomathematical concepts such as population dynamics and biomechanics, and to prepare presentation graphics. Equipment includes permanent computer workstations and a movable station for demonstrations purposes.